Knowledge Assets to Support the Science Instruction of Elementary Teachers (ASSET)

This project will address two obstacles that hinder elementary science instruction: (1) a lack of content-specific teaching knowledge (e.g., research on effective topic-specific instructional strategies); and (2) the knowledge that does exist is often not organized for use by teachers in their lesson planning and instruction. The problem is particularly acute at the elementary level, where many teachers have limited science background and many have not taught science before. The project will collect existing empirical literature for two science topics and synthesize it with an often-overlooked resource -- practice-based knowledge. The resulting knowledge resources will be made available to teachers on a website. The resource will support elementary teachers as they plan for science instruction, and to enable them to productively adapt their own science materials to improve student learning. The project will work with teachers in high minority schools.

The project will contribute to a developing theory of Collective Pedagogical Content Knowledge (C-PCK) which includes the research literature, practitioner literature and collective wisdom of practice. The researchers will seek to understand how C-PCK can be made more useful for teachers. The research questions are: (1) What are the strengths and weaknesses of the knowledge collection and synthesis method? (2) What factors must be taken into account in applying the knowledge collection and synthesis method across science topics? (3) What affordances and limitations does the web-based resource present for teachers primarily, and for teacher educators and instructional materials developers? (4) How does access to content-specific teaching knowledge affect teachers' planning and instruction? Content-specific teaching knowledge will be collected through literature reviews (for empirical knowledge) and a series of iterative, on-line expert panels (to gather practice-based knowledge). The two sources of knowledge will be synthesized for each of the science topics and organized in a web-based resource for teachers. A group of pilot teachers will use the resource as they plan for and teach a unit of instruction on the science topics. Project researchers will observe their instruction and interview the teachers to look for evidence of the resource facilitating their instruction. In addition, researchers will administer assessments to teachers and their students to gauge changes on content knowledge that might be attributable to the resource. Teacher feedback will be used to modify the web-based resource and maximize its usability.